Collaborative Research: Metabolic habitat barriers imposed on tropical diel vertical migrators

This project is seeking to define physiologically-accessible habitat for animals faced with changing ocean conditions. Many oceanic animals migrate daily from warm, oxygenated surface waters at night to deep, cold and hypoxic waters during the daytime, and these migrations play critical roles in oceanic ecology and biogeochemical cycles. Over their depth ranges, migrators face very different ecological and environmental demands that may lead to unique traits that in turn, influence how they respond to a warming ocean where oxygen minimum zones are also expanding. This study is combining ecological and physiological approaches during two expeditions to the Gulf of California. The investigators are measuring metabolic traits in a diverse suite of ocean animals that exhibit vertical migration to determine possible roles of oxygen and temperature in triggering changes in vertical and latitudinal distribution. They are also measuring species distributions in relation to environmental oxygen and temperature to determine ecologically-relevant thresholds of environmental tolerance. The project involves training and experiential learning for graduate and undergraduate students. In addition, engagement with educational experts and artists will generate media and lesson plans to support STEM education and Next Generation Science Standards. These activities leverage the Bermuda Institute of Ocean Sciences’ Databytes and Mid-Atlantic Robotics IN Education (MARINE) programs, designed to improve ocean literacy and technological fluency and targeting students from groups traditionally underrepresented in science. Project products also include a new level for a video game that introduces the concepts of how oxygen minimum zones influence animal distribution.

Climate change is driving poleward shifts in the distributions of marine animals. These shifting edges of the range of species habitats are often interpreted as a manifestation of oxygen limitation that is presumed to occur at high water temperatures due to a mismatch between physiological oxygen supply and thermodynamically-driven oxygen demand. However, recent work by the investigators suggests that oxygen supply has evolved to meet demand regardless of temperature. These opposing views predict very different thermal thresholds for range expansion. In this study, the investigators are employing a relationship between metabolic traits to infer a unique temperature sensitivity in tropical diel vertical migrators and to map their metabolically-available habitat in the Eastern Pacific. Specifically, the investigators propose that oxygen supply does not limit metabolism in tropical migrators, even in the oxygen minimum zone. Instead, they contend that the active metabolic rate for tropical migrators is highly sensitive to temperature, and that this creates a barrier to range expansion where the aerobic scope for growth and reproduction is insufficient in cold waters. This temperature sensitivity will also allow migrators to expand poleward to newly available habitat following modest warming, rather than simply being extirpated from their native tropical habitat by excess warming. This hypothesis, if supported, would transform our mechanistic understanding of species’ responses to climate change, amend our predictions of range expansion, and modify our assessment of migrator contributions to oceanic biogeochemical cycles in a warmer future ocean.